Eddies and their Potential Role in the General Circulation

0002295

This project is an attempt to provide a better understanding of
(a) processes determining the structure, distribution and scale
content of the oceanic mesoscale field and (b) the role of mesoscale
eddies in determining the large-scale structure of the ocean, looking
in turn at the structure of the thermocline, abyssal flows, and
structure of the mid-depth flows below the base of the thermocline.
The physical effects that will be considered are broad-ranging and
include, wind-forcing, mesoscale instabilities of large scale flows,
the response of the ocean to stochastic forcing, adiabatic advection
(ventilated thermocline dynamics), and eddy-topography interactions.
The approach will be a combination of theory and numerical simulations.
Much of the numerical simulation will be with stratified quasi-
geostrophic models although some will use a primitive equation model
(MOM4). The project will begin by looking at the life-cycles of
baroclinic eddies in a broad, baroclinically unstable, wind-driven
flow, studying their equilibration and the scaling of the vertical
structure of the equilibrated eddies. The effects of inhomogeneity
will be studied by stochastically forcing a quasigeostrophic model
linearized about a time-mean wind-driven gyre. The project will go
on to look at the role of the planetary and topographic vorticity
gradients in introducing anisotropies in the nonlinear cascade of
eddy energy in wavenumber space, leading to coherent and energetic
deep flows. Lastly the role of mesoscale eddies in establishing the
vertical structure of the thermocline will be examined using a
primitive equation model.